REU Sites: Summer Undergraduate Program in Engineering Research at Berkeley-Information Technology (SUPERB-IT)

EIA-0139474
Sastry, Shankar
Univ. of California - Berkeley

Title: Summer Undergraduate Program in Engineering Research at Berkeley-Information Technology (SUPERB-IT)

The Department of Electrical Engineering and Computer Sciences (EECS) proposes a new Research Experiences for Undergraduates (REU) site for summers 2002-2004. The research focus of the REU site will be Information Technologies. Information technologies are crucial for manipulating large amounts of information in electronic formats. Berkeley is at the forefront of many areas of IT research, and is known for its large-scale interdisciplinary and experimental research projects. This area represents one of the most critical technological developments of our era. Information industries use these technologies to assemble, distribute, and process information in a wide range of media. The field of Information Technologies, including embedded systems, is by far the fastest growing job category in the U.S. The overall goal of this research is to demonstrate new architectural solutions for the converged information and communication networks of the next century. The REU site will bring students together in computer networking, wireless communication, embedded systems, and data acquisition through censoring, video and image processing, and network-enabled applications from the EECS Department.